Special Project: Visiting Scientist Programs for Minority Institutions and Small Colleges

; R o o t E n t r y F gv) C o m p O b j b W o r d D o c u m e n t G O b j e c t P o o l gv) gv) % ! " # $ & ' ( ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J K F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e G j j j j j j j x D Z T 7 x j x j j j j ~ j j j j 1 9412718 Alo This project is designed to strengthen the research and related educational activities in computer and information science and engineering at minority institutions without doctoral programs. For the twenty-five selected institutions, it provides funds for Visitation Programs by recognized computer scientists, engineers and educators who can respond to the needs of the program proposal submitted by the institution to the Program Committee and who will establish a working relationship with the institution that is expected to extend beyond the period supported by this grant. The project includes a strong evaluation component that extends throughout the period of the grant. Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT 9412718 Tracey Zeigler Tracey Zeigler @ @ S u m m a r y I n f o r m a t i o n ( @ @ Microsoft Word 6.0 1 ; c K @ Normal a " A@ " D efault Paragraph Font 1 Tracey Zeigler \\CLM18\TZEIGLE$\WWUSER\ALO.DOC @HP LaserJet 4/4M LPT1: HPPCL5E HP LaserJet 4/4M D k @ X HP LaserJet 4/4M D k @ X D Times New Roman Symbol & Arial 1 Courier (W1) " h $ 7 9412718 Tracey Zeigler Tracey Zeigler ; ;